Preservation, Microfilming and Computerized Cataloging of the Frank H. Cushing and Fredrick W. Hodge Papers

Under the direction of Mr. Craig Klyver, the Southwest Museum will catalog and conserve the anthropological papers of Frank Hamilton Cushing and Frederick Webb Hodge. Both played active roles in the development of American anthropology and the documentation of traditional Southwestern Native American cultures. Cushing conducted both ethnographic and archaeological research in the late 1800's and was a pioneer in new methods of ethnological investigation. He lived and worked among the Zuni people over an extended period of time and was one of the first participant/observer ethnographers. Based on this original work, he later returned to the Southwest as a Smithsonian Institution staff member to conduct archaeological research in a attempt to understand the development of the patterns he observed. Hodge was also a Smithsonian staff member who first accompanied Cushing and then later undertook extensive publication of his findings. Together the Cushing and Hodge photographs, letters, manuscripts, and other documents cover 30 linear feet. Because many of these materials are fragile and poorly catalogued they are not readily available to researchers. With National Science Foundation support the Southwest Museum will provide proper storage, repair damaged items, and take steps to preclude further deterioration of these collections. The materials will be catalogued on ARGUS, the museum's computerized collection management system. On-line access to documents and photographs in the collections will be available to other ARGUS-user institutions. In addition, the materials will be microfilmed and copies deposited with the National Anthropological Archives, the Museum of the American Indian, and the Zuni Tribal Archives, as well as the Southwest Museum. Printed indexes and finding aids will be generated, and the original materials conserved and housed in proper containers. This project is important for several reasons. It will preserve documents which contain significant scientific information and make them more readily available to researchers.